REU Site: Molecular and Cellular Bioengineering

This award provides funding to the University of Maryland-College Park for the support of a four-year, REU Site in Molecular and Cellular Bioengineering, under the direction of Dr. Timothy A. Barbari. This ten-week summer program will involve eleven students annually in an intensive research program in bioengineering at the molecular and cellular level. Each student work with full-time faculty, visiting scientists, post-doctoral research associates, graduate students, and other undergraduate students on research that promises to lead to important new discoveries and technologies. They will be exposed to state-of-the-art research, multidisciplinary research laboratories, research group meetings, and scientists/engineers from local industry and nearby research institutions (NIH, NIST, USDA, FDA, NRL). In addition, the students will participate in non-technical seminars on the graduate school process, industrial field trips to nearby biotechnology companies, technical and presentation skills training.